Study of a Serum Factor that Activates the Inositol System

The discovery of a new substance, found in the blood serum of many vertebrates, including humans, has been purified and preliminary biochemical evidence indicates that the factor is a special type of albumin. The factor activates a very general intracellular messenger system which is involved in many vital processes. Studies show that this serum factor inhibits the multiplication of cancer cells and also causes the retraction of nerve cell processes. The substance is not present in normal cerebrospinal fluid, but it is present in cerebrospinal fluid of patients following neurotrauma. This factor may play a role in injury and repair of the nervous system. The main goal of this project is to determine the amino acid sequence and structure of the active site of the serum factor using enzymatic and chemical fragmentation of the factor combined with methods of protein purification and structural analysis. Blood serum and albumin are widely used in medicine and in tissue culture. Gaining more knowledge about this factor will have important implications for both basic and medical sciences.